Symposium on Health and Global Climate Change, to be held September 11-12, 1995, Washington, DC

9529213 SETLOW Changes in climate and other natural systems may have profound impacts on health and the human condition in a variety ways. Natural system changes can have direct impacts on human physiology, and they can have indirect affects by altering the development and transmission of disease. At the request of the Committee on Environment and Natural Resources (CENR) of the National Science and Technology Council (NSTC) and the White House Office of Science and Technology Policy (OSTP), the Institute of Medicine and the National Research Council will convene a two-day symposium in Washington in September 1995 to address the complex interactions between human health and global environmental change. More than 300 scientists, health professionals, and key decision makers from the public and private sectors will participate in discussions designed to identify aspects of human health-natural systems interaction that require more research in the future. A published proceedings will help disseminate results of those discussions to a much broader audience. Support for the planning and conduct of the symposium is being shared by a number of CENR agencies. This award effectively provides support from NSF ($15,000), the National Aeronautics and Space Administration ($25,000), and the National Oceanic and Atmospheric Administration ($15,000). This symposium will be an important gathering that brings together leaders from a number of different communities whose interests intersect because of the complex dynamics that link human health and global change. The symposium will provide valuable insights into important problems, and it will provide guidance to federal agencies participating in the U.S. Global Change Research Program and other CENR-related activities.